Understanding Technology through Robots and Multimedia

Computer Science (31)

We are establishing a multimedia/robotics laboratory to attract women into the computer information systems major. We believe that providing opportunities to construct and observe robots, as constrasted to typical pure programming, and to explore the combination of artistic and technological skills required in multimedia will be of particular interest to women. We are developing activities to use the new laboratory to verify our beliefs. We are adapting the laboratory projects created by Susan Fox of Macalester College and our multimedia activities are adapted from work by D'Arcangtelis, Polack-Wahl and Zaidman and by Ross.